Computing Foundations for the Scientist

Computing - Other (35)
Due to rapid technological advances in the sciences, software is becoming a 'black box' to the scientist. However, it is essential for scientists to understand the benefits and limitations of the technology that supports their work. This knowledge is not currently taught in typical technology courses. The goal of this project is to make future scientists more intelligent users of computing technology in their practice of science. This is achieved by introducing students to computational thinking in the areas of algorithms, data representation, abstraction, performance issues and database concepts.

Expected outcomes include fifteen learning modules designed for students in a variety of disciplines including computer science, biology, mathematics, chemistry, engineering and geology. The modules can be delivered in three ways: 1) as part of a comprehensive and interdisciplinary course, 2) as stand-alone modules suitable for use in existing science courses, and 3) as self-paced web tutorials to support student exploration. Materials can be adopted by many institutions with undergraduate programs in the sciences. The project has the potential to improve undergraduate science education by promoting the integration of computing concepts and science pedagogy.